Scaling Laws for High Reynolds Number Flows

Abstract
CTS-9908442
A. Smits, Purdue University

There are many important high Reynolds number turbulent boundary layer flows for which knowledge of the turbulence field statistical properties would be of significant importance to the designer. The velocity field upstream of a submarine propeller and the approach flow forward of the tail rudder on a large aircraft are two examples. Statistical differences and similarities between the largely unexplored high Reynolds number and the well documented laboratory scale boundary layers also have importance for theoretical and modeling consideration within the turbulence community.